ARLINDO Circulation: A Study of the Indonesian Ocean Circulation and Mixing

9529847 Fine In this project, the PI will assist in implementing phase 2 of ARLINDO (Indonesian acronym for Indonesian Throughflow), called ARLINDO Circulation (AC). The objective is to study the circulation and water mass stratification within the Indonesian Seas in order to formulate a thorough description of the source, spreading patterns, inter-ocean transport and dominant mixing processes. AC is specifically aimed at resolving the throughflow transport and velocity field across the central passages of the Indonesian Seas, extending hydrography to the eastern Banda Sea. Moorings are designed to measure the mean and variable current and thermohaline stratification. The PI in this award will be responsible for the sampling for CFC (Chlorfluorcarbon) distributions that are used to determine the rates and types of Pacific water contained in the throughflow.